SMARTNET 2000: A Teacher Enhancement Program for PrecollegeScience and Mathematics Education

9353465 Babu This 36-month project supports the efforts of the Connecticut statewide systemic initiative in Connecticut by providing minicourses and resources to teachers in the 67 local school districts. The project delivers short courses ranging from 2 to 14 hours to teachers on topics identified by the needs assessment. Summer sessions are one or two weeks long and "provide a forum for additional instruction and acquisition of skills, and for networking and sharing of problems and ideas." Academic year institutes include topics like Early Childhood Math, Marine Science Project: For Sea, Music and Science in the Classroom. Key to this project is that the local community or staff identify their needs and receive support and help in those area. Partners in this project include the university, all school districts, and the local community. In this proposal, 45 schools are connected via the Internet so they can reach mentors, share resources, and interact with their colleagues in conjunction with and after the workshops. Cost sharing is estimated at 71%